Interface Apparency and Manipulatability: Cognitive Gateways through the Spatial Visualization Barrier in Computer-Based Technologies

The positive impact of computer-based technology varies in part as a function of interface design and the individual abilities of users. The primary cognitive factor driving differences in performance using computer-based technology is spatial visualization ability. Four techniques for mitigating the negative impact of low spatial visualization are discussed. The use of spatial metaphors and graphical user interfaces have been promising, but interface apparency, revealing hidden relationships and showing contingencies, and interface manipulatability, allowing users to directly manipulate objects and see intermediate steps, are most likely to benefit individuals with low spatial visualization ability. The current project explores the interface apparency and interface manipulatability. Two studies will be undertaken in which the hidden contingencies of a hierarchical control structure are revealed through a dynamic graphical screen display. Two additional studies will be undertaken which allow users to manipulate objects through intermediate steps rather than having to infer or visualize those s teps. The results of these experiments and the design concepts that are subsequently suggested by them will help to provide interface designers with graphical user interface techniques that will provide gateways through the spatial visualization ability barrier.